Invariants for Hamiltonian Spaces

Abstract

Award: DMS-1104670
Principal Investigator: Eduardo Gonzalez

The principal investigator will investigate, using symplectic
geometry techniques, invariants associated to Hamiltonian group
actions. The first project will study (joint with A. Ott,
C. Woodward and F. Ziltener) the construction of gauged
Gromov-Witten invariants on punctured surfaces with fixed
holonomies. The PI will also investigate the particular case of
toric actions on affine complex spaces. Our second project is on
the study of the invariance of gauged Gromov-Witten potentials
for toric actions on affine spaces. We will use established
formulae to show that for Calabi-Yau wall-crossing the gauged
Gromov-Witten potentials do not change. After this project is
finished we will study the behaviour of the potential in the
non-toric case. This will be done jointly with C. Woodward. Our
third proposed activity, joint with H. Iritani, will explain the
relation between Seidel elements and Mirror Transformations for
nef toric non-singular projective varieties. We will then try to
apply our methods to the non-nef case. Our last proposed project
with A. Cotton-Clay will attempt to resolve a conjecture due to
M. Thaddeus relating Floer cohomology for symplectomorphisms and
orbifold (stacky) cohomology for global quotients by finite
groups.

Our research will advance the interplay of several subjects in
mathematics and physics where symmetries play a relevant
role. The first project in this grant will advance the
understanding and applications of symplectic geometry and gauge
theory (the modern language of elementary particle physics) into
physical theories called "gauged sigma models". Our other
projects will provide a different approach to the Mirror Symmetry
phenomena using symplectic geometry invariants.